Workshops For Microcomputer Skills in Organismic Biology

The Workshops teach a series of computer graphics and software development skills to organismic biology faculty, to enable participants to independently develop multimedia instructional materials, and to incorporate these skills into undergraduate laboratories. These skills include technical illustration, two-dimensional animation, solid modeling and three-dimensional animation, photorealistic rendering, single-frame and continuous video digitization, video compression, sound digitization and editing, video micro- and macrophotography, video photography under field conditions, and simulation modeling.***//